RUI: Computing Patterns in Strings

The problem of computing patterns in sequences or strings of characters
from a finite alphabet has important applications in numerous areas of
computer science, notably in data compression, information theory, and
pattern matching. This problem has also important applications in biology.
The stimulus for such recent works is the study of biological sequences
such as DNA and protein that play a central role in molecular biology. DNA
sequences can be viewed as quite long but finite strings of nucleotides of
4 different types, while protein sequences can be viewed as finite strings
of amino acids of 20 possible types. Patterns such as periodicities and
repetitions make up a significant fraction of both DNA and protein
sequences. Although the functions of these patterns are not well
understood, they appear important for understanding the expression,
regulation and evolution of a biological sequence. These patterns can be
used to identify the sequence among other sequences, an application that
plays a role in genetic fingerprinting. Repetitions in biological
sequences have been associated with human genetic diseases. They also
complicate multiple sequence alignment because matches may be present in
numerous places.

The literature has generally considered problems in which a period u of a
repetition is invariant. It has been required that occurrences of u match
each other exactly. Due to the action of evolutionary mutation, patterns
in biological strings are seldom exact but rather approximate. It
therefore becomes necessary to recognize u' as an occurrence of u if the
distance between u' and u is bounded by a certain threshold. Several
definitions of distance have been proposed like the Hamming distance which
counts the minimum number of character substitutions required to transform
u' into u, and the edit distance which counts the minimum number of
substitutions, insertions, and deletions of characters required to
transform u' into u. Although there is an enormous literature dealing with
approximate pattern matching according to these and other definitions of
distance, very little is known on approximate repetitions, a version of
repetitions where errors are allowed, and much remains to be done. Given
the importance of patterns in biological strings and the exponential
growth in the DNA database, it is important to develop efficient
algorithms for detecting these patterns. The investigators study patterns
such as periodicities, repetitions, covers, and seeds and their
approximate versions built upon various commonly used distance measures.
Techniques include recent combinatorial techniques related to partial
strings which are strings where a number of gap characters are allowed.
They also include the cover array, the highest scoring paths in weighted
grid graphs, the probabilistic models that have been proposed for
repetitions, and the subtree max gap problem which is a poweful tool in
parallel algorithm design.